CCI Phase I: Center for Nanostructured Electronic Materials

This Phase I CCI focuses on the important question of how to use molecules to replace bulk materials as components in integrated circuits (IC's). The dramatic improvements of electronic device performance have been a direct consequence of steady improvements in "top-down" methods to fabricate IC's, but feature sizes are rapidly approaching the limits of traditional lithographic methods. In addition, device improvements have not scaled with the latest generations of line-width improvements and new ways to carry out computation and data storage are being explored. Molecular electronics, which substitute nanoparticles and molecule based structures in place of bulk materials currently used in IC's, offer the potential to address these challenges. Unleashing this potential will require new fabrication methods that allow control of the location, dimension, and orientation at the molecular level. The initial focus of the Phase I Center for Nanostructured Electronic Materials is research in 2D directional growth with novel use of chemical precursors and synthetic methods, such as surface plasmon-mediated chemical deposition (SPMCD) that exploits the optical properties of nanoparticles for selective growth of material at specific locations. The non-destructive fabrication of electrical contacts (junctions) between juxtaposed molecular electronic components will be approached by electron beam induced dissociation (EBID) and electrodeposition of contact materials. The research will be extended to 3D growth techniques where specific chemical interactions, involving self-assembled monolayers and tailored chemical precursors, can be applied to induce preferential growth in the z direction. The size and proximity of the nanostructures explored in this program will enable the unprecedented utilization of quantum confinement, coulomb charging and proximal optical coupling for fabrication of potentially new nanoelectronic and nanophotonic devices. This CCI will foster close collaborations between experts in the development of new nanoscale electronic materials and specialists in the creation of prototypes with direct technological relevance. Participants at the University of Florida, University of Illinois at Urbana-Champaign and the University of Georgia will collaborate with industrial mentors from companies on the forefront of development of molecular electronics, who will provide an industrial perspective on materials requirements, device design and manufacturing.

The focus of the Center for Nanostructured Electronic Materials on chemistry-based approaches to molecular electronics for applications in the microelectronics industry is a crucial component of America's competitive edge in technology. Such innovation would aid US national economic competitiveness as articulated in the American Competitiveness Initiative. Within this context, the center will educate students for interdisciplinary collaborative work by building team-based problem solving skills that reach outside the students' own disciplines. Internships, mentoring of undergraduate researchers, and interactions with industrial research personnel will be used to further broaden the students' perspectives. In order to communicate the excitement of science to the general public, the CCI will develop a series of two-minute radio spots and podcasts that will feature real world applications of chemistry and materials science research. To enable broader participation by under-represented groups, the CCI will partner with the established broadening participation programs of the three universities participating in this CCI to recruit and mentor minority and female undergraduates and Ph.D. students.

The Centers for Chemical Innovation (CCI) Program supports research centers that can address major, long-term fundamental chemical research challenges that have a high probability of both producing transformative research and leading to innovation. These Centers will attract broad scientific and public interest by sharing the results of their innovative approach to this challenging question.